Improved Discretization Methods for Modeling Wavefront Conduction in Nonuniform Cardiac Tissue

Investigations into the relative roles of tissue structure and membrane
Excitability recovery on creating conditions for arrhythmias in the heart have proven to
be extremely challenging. Computer models of wavefront propagation have been
important to the inquiry by allowing effects to be isolated and by providing access to
some of the parameters that cannot be monitored or controlled in a given experimental
setup. Due to limitations in the traditionally employed numerical methods, however,
these computer models have either ignored or greatly simplified the effects of structural
and geometrical non-uniformities on the activation process. Consequently, most
mechanisms for arrhythmogenesis derived from them are generally based on the
effects of non-uniformities of membrane properties in tissue with assumed uniform
material properties. For macroscopic models of the heart to have greater predictive
ability they must be able to incorporate the effects of diseased-induced tissue structure
inhomogeneities on conduction and potential timecourses. The objectives of this
proposal are to develop improved discretization schemes for robustly modeling
conduction in regions with spatially varying material and membrane properties. These
objectives will be accomplished by creating a unified meltherhatical and computational
framework for simulation that will allow different numerical methods to be directly
compared. The simulation system, BIDOSIM, will use a module-based paradigm from
which a single "sun-time environment" can be created. This approach will allow any advances made in any one component to lead directly to an advancement of the whole
program. This modularity will thus enable developers from different disciplines to focus
on their own area of expertise (i.e model description, numerical integration methods,
parallelization) without needing to simultaneously work on the other areas. BIDOSIM
will be used to evaluate the use of structured and unstructured finite volume methods,
that involve quadrilateral and triangular grids, to discretize the computational domains
of interest. The speed, accuracy and ability of both types of methods will be examined
using explicit and implicit time stepping algorithms. To ensure that the spatial
discretization methods are able to accommodate any advances in the dynamical models of the ion fluxes across the membrane state-of-the-art kinetic models, such as the Lucfludy II ventricular and Nygren atrial models, will be evaluated over a range of physiological conditions. Finally, strategies for using spatially adaptive gridding in regions with abrupt changes in tissue properties, such as those expected in diseased myocardium, will be developed. Such adaptation will allow significantly fewer grid points and enable the ability to distinguish better artifact from true behavior. The development of the overall software package will be enhanced through feedback from an outside group of users and dissemination will be facilitated through partnerships with two national centers, NCSA and the Center for Bioelectric Field Simulation.